RII FEC: Accelerating Community-Centric Energy Transformation through AI-driven Digital Twinning for Climate-Aware Resilience

This project addresses the urgent challenge of extreme weather events intertwined with aging energy infrastructure in the United States. This is a critical challenge most acute in rural communities. The project aims to enhance local research infrastructure across four EPSCoR jurisdictions and these regions will benefit from advances in AI, digital twin technology, and renewable energy. By developing AI-driven digital twins tailored to the energy infrastructures and socio-economic needs of three representative rural/local communities, the DigiCARES project will optimize energy utilization, integrate renewable sources more effectively, and improve overall resilience to unexpected weather events. This project not only advances the field of energy system planning but also supports education and workforce development, promoting STEM fields through active collaboration with institutions in the region. The project will include extensive outreach activities to engage local communities in co-developing these technologies, ensuring their specific needs and perspectives shape the outcomes. The approaches and outcomes of DigiCARES in AI and digital twins, especially in addressing resilience to weather hazards, will be applicable to various communities, scalable to other regions in the US, and potentially globally.

DigiCARES embarks on a transformative approach in energy systems planning and operation, leveraging AI-driven digital twins to address the nexus of climate, energy, and community. The overarching goals of this project are to enhance energy efficiency, reduce energy burden, integrate renewable sources, and fortify the resilience of rural communities to hazards such as flooding, drought, and temperature extremes. The project integrates diverse scientific disciplines including data science, climate science, AI, and energy policy, to create interoperable datasets, interactive tools, and community-centric platforms. These digital twins will provide in-depth analysis and strategy testing for energy systems under various future scenarios. The research encompasses six key activities: multi-scale climate dynamics, sociodemographic energy mapping, community-centric planning and operation, AI-driven digital twin development, pilot studies in three communities, and translating energy insights into interactive visual narratives. Through these activities, DigiCARES aims to generate advanced models, open datasets, and strategic decision frameworks, providing scalable solutions and setting a new benchmark for interdisciplinary research in natural hazard resilience and sustainable energy systems. These efforts will significantly contribute to building a resilient energy future.